Doctoral Dissertation Research Improvement: Urban Environmental Geography, Public Health, and Pest Animals in US Cities, 1850-Present

Ecologists and environmental policymakers have in recent years become increasingly interested in urban ecosystems, where the interface of social and natural systems poses unique challenges for reform efforts. One fertile domain for exploring these interactions is the complex and changing relationship between animals identified as "pests" and the human beings whose lives are entangled with them. Pest animals have been implicated in many kinds of health risks, among them infectious diseases ranging from typhus to West Nile virus, exposure to pesticides used to control vermin, and indoor allergens such as arthropod feces. This project will examine how poverty, the physical environment, and pest control strategies have shaped the historical geography of human-pest interactions in US cities from 1850 to the present. The main objectives are to explain distributions of urban pest animals; to assess the effects of past interventions in pest problems; and to show how communities navigated political challenges related to pest problems. Spatial analysis of demographic and health data will show how poverty, housing, and urban development influenced the distribution of pest populations. The researchers will analyze archival materials, past scientific research, and interviews to reconstruct pest control programs and understand how they failed or succeeded with reference to urban ecosystems and epidemiology. The study will also trace ideas about pest control in the context of shifting attitudes toward the environment and urban animals. The study will reveal how political controversies affected neighborhoods with high pest populations; preliminary findings show that communities have resisted the spatial stigma of infestation, and have faced difficulties implementing preventive approaches to pest control. Initial results also suggest that both low-income, inner-city communities and suburban fringe areas have experienced the ecology of unintended consequences, for example the growth of pest populations at urban renewal sites mid-century and around subdivisions today, and exposure to toxic pesticides in the course of efforts to protect against pest-borne illness.

The analysis of historical relationships among human communities, the urban physical environment, and populations of urban wildlife will help to explain current urban environmental and health problems. By tracing failures, injustices, and successes in past responses to vermin by public, private, scientific, and activist institutions, the researchers will be able to inform present-day efforts to protect urban communities from pest-related disease. The project also bears implications for current efforts to cultivate healthy ecological systems in cities: urban animals and emerging disease vectors pose both ethical and practical challenges for urban ecology programs, and this project will examine the past as a guide to addressing these problems.